Microscopy Laboratories Enhanced by Computer-aided Visualization

The goal of this project is to introduce inquiry-based and problem solving approaches into microscopy laboratories, which have traditionally been descriptive in nature. This is accomplished by using MacIntosh IIci workstations as part of an image analysis system in a network configuration to capture, store and share microscopy images from living and preserved materials. Students in courses such as Developmental Biology and Microanatomy are able to collect, store, and share for later analysis and/or presentation, images captured from their microscopes, and present the processed images as three dimensional reconstructions or animations.